CAREER: Lessons from a simple brain: Decoding neural computations underlying navigational and social behaviors in Drosophila larva

We live in complex environments where we must continuously interpret ever-changing sensory cues to respond appropriately to our surroundings. Understanding how the brain evaluates this information, adapts to dynamic conditions, and generates appropriate behavioral responses is a central challenge in neuroscience. This project investigates the fundamental principles by which nervous systems encode and transform sensory information to guide behaviors, using the fruit fly larva as a model organism. Despite having only about 10,000 neurons, the larval brain performs sophisticated computations that are shared across species. To achieve a circuit-level understanding of these processes, the PI will leverage a unique combination of powerful genetic tools that provide access to individual nerve cells in larva’s mapped neural circuits, with a custom imaging system capable of recording neural activity while the animal is freely behaving. This approach allows the PI to directly relate patterns of neural activity to both sensory inputs and behavioral outcomes, providing new insights into how neural circuits generate behavior. By uncovering how simple neural circuits integrate information, adapt to repeated stimuli, and generate flexible behavioral responses, this research will advance our understanding of brain function and inform the design of more robust artificial intelligence systems that must operate under uncertainty. This CAREER award will also support interdisciplinary education by training students across physics, biology, and neuroscience, engaging high school and undergraduate students in hands-on research experiences, and promoting science communication through community outreach programs. Together, these efforts advance national priorities by strengthening STEM education and workforce development equipped to address challenges in interdisciplinary and data-driven research. This project advances NSF’s priorities in Biotechnology and Artificial Intelligence.

This project investigates how neural circuits transform sensory inputs into behavioral responses and how these computations change with experience in Drosophila larvae. This research combines quantitative behavioral experiments, targeted optogenetic perturbations, advanced closed-loop two-photon imaging, and neural circuit analyses, organized around three objectives. First, it will determine how frequency and intensity of vibrational stimulus are encoded in sensory pathways and how repeated stimulation leads to adaptive changes in behavioral responses. Second, it will examine how neural circuits dynamically integrate sensory cues to allow animals to flexibly adjust their behavior in changing environments containing vibration and light. Third, it will examine the sensory mechanisms that allow animals to spontaneously gather into clusters during collective behaviors. By focusing on sensory cue integration, adaptive processing, and social cluster formation, this work will establish general principles of how neural circuits generate flexible behaviors in changing environments. These insights will have broad relevance for neuroscience and for engineering disciplines seeking to design systems that can robustly integrate information and adapt to complex, real-world conditions.